International Conference on Energy Systems

ABSTRACT
CTS-0004210
Charles Hauer

This is an individual travel grant to allow the traveler to attend the International Conference on Energy Systems held in Amman, Jordan on September 25-30, 2000. Standard coach airfare and government per diem rates will be provided. Dr. Hauer will make a presentation at the conference on areas of his research and teaching at George Washington University: conventional and alternative electric power systems. He will
also represent the NSF in very preliminary discussions relate to a future US/Jordanian conference on Energy and Materials Processing. A final verbal and written Fastlane report is required.